Nonlilnear Partial Differential Equations in Heterogeneous Superconducting Systems and High Critical Temperature Cuprate Compounds

Giorgi
DMS-0604843

The investigator analyzes mathematical models of
heterogeneous superconducting systems and of
high-critical-temperature copper oxides that show superconducting
properties. Topics considered in heterogeneous superconducting
systems include the effect of surface cold working or of contact
with semiconductors on the critical parameters (such as
transition temperature) that describe superconductivity in
mesoscopic samples, the effect of interactions of mesoscopic
magnetic textures with superconductors on transition temperatures
and vortex pinning, and surface nucleation in superconductors
surrounded by normal materials. In high-temperature
superconductivity, the investigator extends mathematical
techniques developed for low-temperature systems to the SO(5)
model of high-temperature copper compounds.

Superconductors are materials that show zero or almost zero
resistance to the flow of electrical current. Usually this
happens at extremely low temperatures. Some materials that are
superconductors at higher temperatures are known, including some
copper compounds of recent interest. But the theory that would
describe their behavior is incomplete. The investigator studies
mathematical models of composite superconducting materials and of
superconductors based on copper compounds. A large body of
experimental data are available, but definitive models for
cuprate compounds do not exist. They are of special interest
because materials based on these compounds show superconducting
properties at desirably high temperatures. Superconductors are
of commercial interest for building electronic sensing devices,
energy storage devices, magnets, and quantum computers. Progress
in nanotechnologies has raised the possibility of industrial
applications of mesoscopic heterogeneous magnetic and
superconducting systems.